CT-ISG: Isotropic Cryptography

PIs: Matthew Blaze and Sampath Kannan
University of Pennsylvania

The Isotropic Cryptography project introduces and lays the theoretical
and engineering foundations for information-theoretically secure
communication over open channels that meet certain requirements. More
specifically, the project identifies and is concerned with {\em
isotropic channels,} in which eavesdroppers monitoring the channel
are unable to identify the sources and destinations of messages with
certainty. Such channels appear to have very interesting and
promising security properties. Even a partially isotropic channel (in
which the adversary can identify a message source but only with some
bounded certainty) can provide information-theoretic confidentiality.

The project's experimental work focuses on designing and analyzing
practical protocols that exploit the isotropic properties of
conventional communication channels (such as local Ethernet,
near-field radio and mobile wireless networking). Can (partially or
fully) isotropic channels be realized in practice over existing
network technologies? The project also lays a theoretical foundation
for isotropic cryptography, studying what assumptions are necessary to
implement protocols for various well-known and new cryptographic
primitives and what the most efficient protocols are for various
primitives. Finally, the project examines the relationship between
traditional anonymity networks and Mix networks on the one hand and
isotropic channels on the other. Can isotropy be used to provide
anonymity and can anonymous networks simulate isotropic channels? Can
isotropic approaches be made practical and efficient?